Purchase of Mass Spectrometric Instrumentation

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program will enable the Department of Chemistry at The University of California in Los Angeles to acquire a Fourier Transform Mass Spectrometer equipped with electrospray, electron ion and laser desorption sources. This equipment will enhance research ranging from singlet oxygen damage to biological tissues, to modification and synthesis of fullerenes, to dendritic based host molecules with multiple ligands for cell binding, to gated carcarands.

Mass spectrometry is a technique used to probe intimate structural details and to obtain the molecular compositions of a vast array of organic, bioorganic, and organometallic molecules. The acquisition of this capability in mass spectrometry is essential for carrying out frontier research in many fields of chemistry.